Great Plains Operator Theory Symposium 2019

This award provides funding for US participation in the 39th annual
Great Plains Operator Theory Symposium that will be held May 28
to June 1, 2019 at Texas A&M University. The conference focuses on
recent developments in Operator Algebras and Operator Theory. This symposium
aims to be a conference covering broad areas with large participation,
including many young people, who are encouraged to give talks.

A number of distinguished mathematicians have already agreed to attend
and speak at this conference. This award gives early career
researchers, members of underrepresented groups, researchers not funded
by NSF and the like an opportunity to attend and participate in this
conference. The organizing committee will strive to make this funding
opportunity known to target groups through a number of different
activities. More information will be made available at:

http://www.math.tamu.edu/~kerr/gpots2019/